Regularity and Dispersive Properties of Evolution Equations

The main goals of this project are concerned with the study of the
regularity properties of the solutions of the nonlinear wave equations
that arise in connection with the Einstein equations and more general
quasilinear wave equations. In particular, we address the questions of
local well posedness for the above equations. This project also
investigates the global dispersive effects for the linear Schroedinger
equation with variable coefficients.

The Einstein equations is one of the cornerstones of the theory of
relativity. They play a fundamental role in the description of the
structure of the universe. Since the equations can not be solved
explicitly with exception of a few very special cases, we need to
understand the qualitative properties of its solutions. We try to
understand whether the solutions persist in time without exhibiting
an abnormal behavior. To gain insight we do it for the more general
class of equations. We also interested in understanding the connections
between the classical and quantum behavior of particles. This leads
us to the study of the behavior of solutions of the fundamental
equation of the quantum mechanics, the Schroedinger equation.